Tropical Intraseasonal Variability in an "Aqua Planet" GCM

There is strong theoretical evidence that the Madden-Julian (30-60 day) oscillation in the atmospheric is due to interactions between convection and circulation. The PI will study the characteristics of these interactions in a fully nonlinear general circulation model with an ocean covered earth ("aqua-planet"). Preliminary experiments with the model show strong eastward propagation at periods between 10-15-days. The oscillation is equatorially trapped with maximum amplitude in the upper troposphere. The disturbances appear to exhibit both Kelvin and Rossby wave characteristics, possibility suggesting that the disturbances are coupled Kelvin-Rossby waves. The hypothesis has been put forth that the vertical profile of convective heating defines the phase speed of propagation observed in the model and the real atmosphere. It is suggested that interacting vertical modes excited by the diabetic heating lead to propagating wave-CISK modes. The PI will critically examine this hypothesis in the "aqua-planet" general circulation model. The preferential excitement of the slowest modes over the warmest waters in the observations is inadequately explained by the hypothesis. The PIs will also study the sensitivity of oscillations to zonal asymmetries in the sea surface temperatures. The spatial scale of the convection is very small whereas the oscillations in the circulation occur on the planetary scale. Finally, the PIs will study the zonal scale selection and the coupling between the rotational and divergent kinetic energy by an analysis of the model energetics in the wave number domain as a function of time. It is expected that the proposed research will provide a better understanding of the characteristics of the interactions between convection and large scale atmospheric circulation.